Electrochemical Amination Reactions for Amino Acid Synthesis

The purpose of this endeavor is to develop an efficient electrochemical process for the commercial production of amino acids. The PI plans to use electrochemically generated homogeneous catalysts to produce dl-dopa and dl-phenylalanine. These products are used respectively in the preparation of the artificial sweetener Nutrasweet and in the treatment of Parkinson's disease. The experimental program planned is directed towards gaining insight into electrochemical reaction mechanisms involved in the amino acid sythesis. Electrochemical processes may possess the following advantages: (1) provide greater selectivity than an equivalent chemical process; (2) be environmentally more benign; and (3) provide the opportunity for a simplified overall industrial process where one or more steps normally found in conventional chemical processes can be avoided. This project could also increase overall understnading of electrolytic cells. The PI has broad experience in electrochemistry and the company has the equipment to perform the proposed work. Funding of this Phase I is recommended.